Interfacing of Computers with Fluid Mechanics Experiment- ation

Resources are provided to adapt some undergraduate experiments in hydraulics and fluid mechanics to computer-based instrumentation and control, and to explore new concepts in the teaching of laboratory courses. The purpose of the project is twofold: to introduce students to modern methods of scientific data acquisition and control, and to enhance the teaching of fluid mechanical phenomena. The latter is the primary objective as it is well known that direct involvement and observation of fluid flows is essential for gaining a feel for the subject. The project will accomplish this by allowing many more cases to be explored and by providing rapid feedback of the consequences of changing experimental variables. A manual which describes the experiments and makes the software available to other institutions will be produced.